CEDAR - Resonance Lidar to Study the Upper Mesosphere and Lower Thermosphere

9402823 Wickwar This project will be a one-year collaboratory effort involving Utah State University, the University of Maryland, Clemson University, the University of Pittsburgh, and University College London to upgrade its current capability to include a state-of-the- art resonance-scatter lidar system. In addition to significantly enhancing the atmospheric science, the development of this resonance lidar will mark the transfer of a well-tested laboratory technique to study the atmosphere. After its development and initial use in Utah, the PIs will try this system, or part of it, at the Polar Cap Observatory. At this high-latitude location, the observations could be very useful for examining the winds and temperatures inside and outside the polar vortex as well as the occurrence of ice clouds to determine temperature conditions at time of formation. ***